Foundations of Object-Oriented Languages Workshop; June 24-26, l993; Williamstown, MA.

This project will support collaborative research by American and European researchers on the foundations of object-oriented programming languages by providing funding for a joint NSF/ESPRIT workshop to be held in Williamstown, Massachusetts, USA, in the summer of 1993. Topics to be covered in the workshop include the design, semantics, type systems, and verification of object-oriented programming languages.